Scientific Computing Research Environments for the Mathematical Sciences (SCREMS)

The Department of Mathematics at the University of California, Santa
Barbara will purchase a Beowulf Cluster consisting of 16 dual processor
node, one single processor controlling node, a network switch, backup tape
drive, and a rack. This hardware will be dedicated to the support of
research in the mathematical sciences. The equipment will be used for
several research projects, including in particular: Computations of
scaling of fluvial landscapes, computations of effectively nonlinear
quantum systems, dynamically adaptive and nonstiff boundary integral
methods, numerical schemes for simulations of multi-phase fluids and
vorticity deformation in 2D ideal incompressible fluid flow.